CPS:MEDIUM:Programmable Second Skin to Re-educate Injured Nervous Systems

Objectives and approaches. The objective of this research is to create a novel Cyber-Physical System, a self-reconfiguring “second skin orthotic sleeve” consisting of programmable materials. The orthotic sleeve, worn over one or more limbs of brain-injured individuals, may restore brain function by promoting enriched exploration of self-produced limb movements. The approach consists of three steps (1) micro-fabricating sheets with embedded sensors and muscle-like collections of force-producing actuators, (2) conducting longitudinal recordings of kicking by typically developing and preterm brain-injured infants who wear a sensing, but not actuated micro-fabricated second skin, and (3) developing biologically-inspired programming techniques to help determine an algorithm with which the second skin embedded actuators may adaptively assist the ever-changing developmental pattern of infant kicking.
The technology can be applied to many mobility-impaired populations,including children and adults with brain injury, the ageing population, and injured soldiers. The project will inform basic scientific and engineering research in areas such as formation of architectural structures by large-scale multi-agent robotic systems, and self-organization of swarming small-scale agents that act autonomously in cooperation with biological systems. The multi-institutional effort of this research endeavor will positively impact undergraduate and graduate science education via explorations of the intersection of biology and computation in cyber-physical systems. Innovation, teamwork, and the value of communication are encouraged. These efforts will promote education of an American work force that is technically expert, scientifically comprehensive, and socially aware to sustain national excellence in a future increasingly based on technologically complex systems.